CAREER: Energy and Charge Transfer Dynamics in Hyperthermal Energy Ion-Surface Impacts

Professor Sosolik and his coworkers in the Physics Department at Clemson University are examining the interactions of hyperthermal ions with chemicurrent-sensing Schottky diode devices. The goal of this work, supported by the Analytical and Surface Chemistry Program, is to understand energy and charge transfer processes in hyperthermal ion-surface interactions, and to examine the role of spin in ion neutralization processes. This fundamental understanding broadly impacts the development of sensor devices and spin dependent ion-surface interaction systems. A comprehensive educational plan focused on nanoscience integrates this research with educational outreach and involves a broad community of students and educators in this work.

With the support of the Analytical and Surface Chemistry Program, Professor Sosolik is examining the detailed interaction of ions with thin layer Schottky diode sensor devices. The goal of this work is to develop an understanding of charge and energy transfer upon ion-surface collision, and to use this information as a foundation for the development of sensitive gas sensors. An educational outreach plan involving a broad range of constituencies is included in this CAREER development award.